Random Matrices, Integrable Systems and Related Stochastic Processes

The main activity of the project is the analysis of new limit laws and
their associated integrable differential equations that appear in a
variety of stochastic processes. These stochastic processes include the
Airy process, the Pearcey process and its higher order generalizations,
a nonintersecting Brownian excursion path model, and a class of
interacting particle systems called the asymmetric exclusion process.
The main methods to be employed are a combination of ideas and
techniques coming from random matrix theory, integrable systems and
operator theory. An operator theory application to integrable systems
would establish new limit theorems for a class of operator determinants
providing solutions to the cylindrical Toda equations in so-called
critical cases. The methods are related to those used in the study of
truncated Wiener-Hopf and Toeplitz operators.

Many physical systems possess such complicated behavior that exact
predictions become impossible. Random matrix theory provides
mathematical models that allow a simulation of such behavior and
predictions that allow comparison with experiment. This was its original
motivation, but it has since had significant applications in other areas
of mathematics, science and technology, in such diverse subjects as
communications, probability, statistics, number theory, condensed matter
physics, and engineering. One can anticipate that ideas from random
matrix theory and techniques developed in part by the PI and his
collaborators will be instrumental in the study of the stochastic
processes describe above. Further, the project should provide, through
the integrable differential equations, implementable numerical
algorithms to compute properties of these processes. This last aspect is
most important for applications.